U.S.-Czechoslovak Project Development in Wetland Ecosystems

Dr. Michael S. Adams of University of Wisconsin-Madison will visit Dr. Jan Kvet of the Czechoslovak Academy of Sciences' Institute of Botany to develop plans for a joint workshop focussing on wetland ecosystems. The resulting proposal is intended for consideration under a new U.S.-Czechoslovakia Cooperative Science Program and if successful, should contribute to our knowledge of macrophyte- dominated, submersed littoral zone communities.